Workshop on Research Needs Relating to Quality of Urban Stormwater Drainage, Montpelier, France, August 26-30, 1985

Support will be provided for U.S. participation in a workshop on research needs relating to the pollution of surface runoff water from urban and urbanizing land. The objectives of the workshop are to review current knowledge, define research needs, and facilitate the exchange of information among participants as a step toward cooperative research on the pollutional effect of urban stormwater runoff.